Catalysis, Adsorption and Charge Transfer Kinetics in Reactions at Electrodes

9312091 Anson This project is in the general area of analytical and surface chemistry and in the subfield of electrochemistry. During the tenure of this five-year continuing grant, Professor Anson and his students will design, synthesize, and evaluate new surface confined electrocatalysts for the direct, four-electron reduction of dioxygen to water and for the electrooxidation of organic substrates such as methanol, ethanol, formaldehyde, and formic acid. The general applicability of electrocatalysis by adsorbed electroactive ligands and their metal complexes will also be explored. Because many electrocatalytic species are surface confined using polymeric matrices, the impact of solution composition-controlled thermodynamic driving forces on the kinetics of electron transfer across polymer-electrolyte interfaces will also be investigated. Finally, the electrochemical behavior of metastable transition metal-dioxygen complexes, long believed to be key intermediates in the electrocatalytic reduction of dioxygen, will be probed to afford insights into the mechanisms of these transition metal-promoted processes. %%% The rational design of efficient, economical fuel cells and batteries is predicated on a fundamental understanding of the electrochemical processes involved. This research is aimed at enhancing knowledge of how electrochemical transformations of inexpensive substrate molecules can be facilitated through electrocatalysis for use in these technologically and societally important devices. ***